Student Travel Support for IEEE Symposium on Security and Privacy (IEEE Student)

Terry Benzel
University of Southern California, Information Sciences Institute
0733848
Student Travel Support for IEEE Symposium on Security and Travel (IEEE student)

Abstract

Through this award, up to 15 graduate and undergraduate students receive awards to attend the 2007 IEEE Symposium
on Security and Privacy, the preeminent technical and research conference on computer security. This conference, the
oldest in computer security, typically accepts 20 papers of the approximately 120 submitted, and covers most of
the important technical topics in the computer security field. Through the support of this travel grant, some
students will be given the opportunity to present papers and familiarize themselves with the important technical
technical areas covered by computer security. The availability of the travel scholarships is widely publicized in
order to recruit US-based students nation-wide, especially those in underrepresented groups.